International Conference on Complex Systems

9988910
Bar-Yam
The Third International Conference on Complex Systems (ICCS)
is being organized for May 21-26, 2000. There is a new and
growing effort to understand complex systems and complexity
that has stimulated widespread interest in the scientific
community. Scientific sessions will focus on unified
conceptual and mathematical strategies and their applications
to physical, biological and social systems. The conference
includes pedagogical sessions for students and topics of
interest and concern to the public that will serve as
vehicles of education and communication for a broader
audience. Various conferences and workshops have addressed
aspects of these growing efforts to understand complex
systems. However, the ICCS is the only major international
conference series to bring the wide diversity of research
together, demonstrating the interdisciplinary yet
integrative and coherent nature of these efforts. This
conference series is organized by the New England Complex
Systems Institute (NECSI).